REU: Open Ocean and Sub-Tropical Marine Research Experiences for Undergraduates at the Bermuda Biological Station for Research

9322244 JONES This is a request to continue an REU SITE at the Bermuda Biological Station for Research. This program provides a three month intensive immersion in marine science research during the fall (mid-September to mid-December). Some of the students will be involved with projects related to the U.S.JGOFS (Joint Global Ocean Flux Study), while others will focus on the links between near shore processes and oceanic and atmospheric events. This allows students to participate in large-scale interdisciplinary research programs as they concentrate on the primary objective of doing original scientific research.